CMG: Rheology of Damaged Materials with Applications to Deformation in the Earth's Crust

The investigators are exploring new methods for representing damage
mechanics in the Earth's crust using a continuum rheology. Using a
method that has been developed for understanding phase transitions in
liquid crystals, they are developing a new model of damage in a
continuum material undergoing shear flow. They model crustal
deformation using a fluid phase with anisotropic properties, in which
some elastic energy is stored according to the direction of an
alignment vector. The undamaged state is characterized by random
alignment of the directional vectors (director). Defects can be
introduced in various configurations with appropriate alignment of
the directors. In response to shear, point defects can develop and
merge to trigger spikes in the velocity, that is, slip events. This
slip mechanism, followed by subsequent healing, provides a model for
the formation of microcracks and stick-slip behavior on faults.

Intellectual Merit: Deformation of the Earth's crust and upper mantle
has implications for the origins of earthquakes and the mechanisms
for plate tectonics. This study of the behavior of this system will
address the origins of damage, formation of faults, fault slip, and
healing, in the Earth's crust.

Broader Impacts: By developing new models of damage rheology, this
project will address the underlying mechanisms leading to
earthquakes, a scientific problem of fundamental societal importance.
A theory of damage in a continuum has potential implications well
beyond geophysics, and could be applicable to damage in other
continuum materials. In addition, this project establishes a new
collaboration between geophysics and applied mathematics, leading to
the development of new methods in both fields, while educating a
graduate student and a postdoctoral scholar.